Unix C and Graphics Upgrade of the Undergraduate Computer Science Program.

The project will improve six upper level courses of the computer science program. The improvement will be made possible by the purchase of four workstations and one file server that are Unix based and feature high resolution graphics displays. The availability of Unix and C will allow students to attack more significant software projects in Operating Systems, Programming Languages and Compiler Construction. Students in Computer Graphics will be able to perform more sophisticated graphics modeling and access standard graphics libraries in their software projects. Students in the computer Science Senior Research Courses will be able to perform experiments on system parameters and performance because a given student will be able to have exclusive control at a workstation for blocks of time. Experience with Unix is becoming crucial because of its dominance as an operating system used in graduate programs. Furthermore, experience with Unix, C, high performance graphics workstations and networked systems is very advantageous to graduates entering professional computer science careers today.